DISSERTATION RESEARCH: Direct and indirect effects of invasive species on plant-seed disperser mutualisms

Many plants rely on fruit-eating animals to disperse their seeds. This interaction benefits both the plant and the animal and is therefore termed a mutualism. Because seed dispersal can determine the abundance and range of the plant, seed dispersal mutualisms can benefit other species that use the plant for food or shelter and thus affect patterns of biodiversity across the landscape. The introduction by humans of new species into a habitat can disrupt seed dispersal mutualisms, but we know little about such disruptions may affect other, interrelated species. This project will test the larger ecological effects of disruption of an important seed dispersal mutualism in the northern temperate forests of Patagonia in Argentina. The mistletoe Tristerix corymbosus is the sole winter nectar source for the hummingbird Sephanoides sephaniodes, which remains in the region year-round and is in turn responsible for the pollination of nearly 20% of the endemic woody flora in the region. The seeds of the mistletoe are dispersed exclusively by the marsupial Dromiciops gliroides. After passing through the gut of the marsupial, most of the defecated seeds stick to branches of maqui, Aristotelia chilensis, the most abundant understory shrub in the forest and the most common host for the mistletoe. Because of these close ecological relationships, exotic species that reduce the density of maqui could also reduce the abundances of the mistletoe, the hummingbird, and the marsupial, changing the forest as a whole. This project will test the effects of the exotic wasp Vespula germanica and of exotic ungulates on maqui populations and on the linked species in the forest.
Conservation of biological diversity is important to human society, and one of the major threats to biodiversity are the accidental and intentional introductions of new species around the world by humans. This research will further our understanding of how introduced species can affect biodiversity and help guide management to conserve diversity. The research will also strengthen international scientific collaboration and training.